Structure, Phase Transitions, and Dynamics of Adsorbed Films

9314235 Taub Technical abstract: Neutron and x-ray scattering experiments on adsorbed films are proposed to address a variety of problems of current interest in surface physics: 1) determination of the multilayer structure and growth mode of the simplest (rare gas) films as well as that of more complex hydrocarbon films adsorbed on solid substrates; 2) elucidation of the role of molecular steric properties in the diffusive motion, growth kinetics, and phase transitions of adsorbed films. Experiments will be conducted at the University of Missouri Research Reactor (neutron diffaction) and at the National Synchrotron Light Source, Brookhaven (x-ray diffraction). Non-technical abstract: A microscopic understanding of the structure of organic films on metal surfaces is fundamental to the technology of catalysis, lubrication, and adhesion. Toward this end, neutron and x-ray experiments are proposed to investigate the layer-by-layer structure and growth of the simplest (rare gas) films and then of more complex hydrocarbon films adsorbed on solid surfaces. Quasielastic neutron scattering will be analyzed to determine the effect of molecular size and shape on the motion of adsorbed hydrocarbon molecules. Experiments will be conducted at the University of Missouri Research Reactor and the National Synchrotron Light Source. ***